Acquisition of Ion Chromatographs and Related Glaciochemistry Equipment

*** 9871226 There is growing recognition of the special "window on the past" afforded by paleo-climatological studies, notably those developed from high resolution, continuous, well-dated, multivariate ice core records. The Climate Change Research Center (CCRC), Institute for the Study of Earth, Oceans and Space at the University of New Hampshire, has been a leader in the siting, recovery and chemical analysis and interpretation of aerosol, snow and ice core samples from the Arctic, Antarctic and Asia. As a con- sequence of such research, investigation into changes in climate and in the chemistry of the atmosphere is expanding both nationally and internationally. The scientific issues posed require continued creativity, research on local to global scales and the translation of resultant scientific concepts through academic curriculum and public outreach. This Major Research Instrumentation (MRI) project will allow CCRC to address the foregoing by: (1) broadening CCRC's global research capability through upgrades to its mainst ay research tool, ion chromatography, leading to improved laboratory efficiency, replace-ment of current outdated instruments and new educational opportunities; (2) broadening CCRC's research and educational activities through acquisition of aerosol and precipita- tion sampling equipment in support of its local to regional scale, New England based , monitoring program; and (3) complementing CCRC's existing global glaciochemical sampling capability by improving its existing continuous sampling equipment. ***